Expression of Microbial Nitrification in the Stable Isotopic Systematics of Oceanic Nitrite and Nitrate

Closing the marine budgets of nitrate and nitrous oxide are central goals for researchers interested in nutrient-driven changes in primary productivity and climate change. With the implementation of new methods for oxygen isotopic analysis of seawater nitrate, it will be possible to construct a budget for nitrate based on its oxygen isotopic distribution that is complementary to nitrogen isotope budgets. Before we can effectively use oxygen isotopes in nitrate to inform the current understanding of the marine nitrogen cycle, we must first understand how different processes that produce (nitrification) and consume (assimilation, denitrification) nitrate affect its oxygen isotopic signature.

In this study, researchers at the Woods Hole Oceanographic Institution will provide a quantitative assessment of the oxygen isotopic systematics of nitrification in the field and thus fill a key gap in our understanding of 18O variations in nitrate, nitrite, and nitrous oxide. The primary goal is to develop a quantitative prediction of the oxygen isotopic signatures of nitrite and nitrate produced during nitrification in the sea. The researchers hypothesize that oxygen isotopic fractionation during nitrification is the primary factor setting the 18O values of newly produced nitrate and nitrite. Secondly, they hypothesize that oxygen atom exchange is low where ammonia oxidation and nitrite oxidation are tightly coupled, but may increase in regions with nitrite accumulation, such as in the primary and secondary nitrite maxima. They will test these hypotheses with a series of targeted laboratory and field experiments, as well as with measurements of nitrite and nitrate isotopic distributions extending through the euphotic zone, primary nitrite maximum, and secondary nitrite maximum of the Eastern Tropical South Pacific. The results of these experiments are expected to provide fundamental information required for the interpretation of 18O isotopic signatures in nitrite, nitrate, and N2O in the context of underlying microbial processes. A better understanding of these features and the processes involved is important for quantifying new production, controls on the N budget, and N2O production in the ocean -- which should lead to a better understanding of the direct and indirect interactions among the nitrogen cycle, marine chemistry, and climate.

Broader Impacts: The results of this research should be of interest to a broad research community interested in oceanic nitrogen cycling, N2O production, and climate change, as well as nitrifier physiology and biochemistry. Student training in biogeochemistry will be an important component of the activity. A female graduate student will participate throughout this project, and will learn to integrate training in culture manipulation, laboratory and field-going research, as well as isotopic and data acquisition and analysis. There will also be opportunities for undergraduate students, including ones from under-represented minority groups, to become involved.